SGER: Multifunction Material Flow Systems

9628570 Tanahoco This SGER project focuses on the development of next-generation material handling systems for ultra-flexible factories. This effort will be carried out in collaboration with representatives from Australia, Europe, and Japan. This project will spearhead United States (U.S.) involvement in this area. This project is a small exploratory venture into an emerging research area characterized by next-generation factory configurations based on operational control strategies that are metamorphic in nature. It represents an initiative that will investigate, at an international level, the evolution of concepts driven by the NSF Intelligent Materials Handling Initiative. United States (U.S.) participation will concentrate on aspects related to flexible layouts and tool movements as opposed to part movement.